SGER: A New Finite Element Solver Algorithm of Optimal Speed and Robustness

The investigator will investigate the potential of a new method for
constructing finite element solvers of optimal speed. For a class
of bounded monotone elliptic systems, the method solves the finite element
model in a discrete quotient space, whose complexity depends mainly on the
kernel of the discritized finite element operator, and is linearly
proportional to the number of unknowns in the system. The investigator
will demonstrate that the method has many advantageous features,
and seek for extending it to to more challenging problems such as
convection-dominated diffusion.

The proposed research resides at the heart of high performance scientific
computation, having repeatedly been identified as a critical mission by
National Sciences Foundation over the last several decades. In 2003,
the U.S. Department of Energy publicized a two-volume report
titled "A Science-based Case for Large Scale Simulation", prepared with
direct input from more than 300 of the nation's leading computational
scientists, in which discovering efficient solver algorithms for large
scale simulation is recognized as important as building supper computers.
The investigator directly answer to the call with a strong promise to
advance that mission.